CAREER: Automatic Generation of Software Configuration Management Repositories

CCR-0133991
CAREER: Automatic Generation of Software Configuration Management Repositories
Emmet James Whitehead

Twenty-five years of research and development on Configuration Management
(CM) systems has bequeathed a rich legacy of data models, system
architectures, and implementation approaches. This existing knowledge about
CM systems is analyzed to distill out the key lessons, and then leveraged
for advanced research on CM. The research advances the maturity of CM
knowledge by performing a comprehensive domain analysis of CM systems, and
by developing specification languages and technology to permit automatic
generation of CM repositories.

A domain model permits the characterization of an existing CM system as a
point in a multidimensional design tradeoff space. This research describes
key design spaces in sufficient detail to permit the specification of a
single point in design tradeoff space. This specification can be fed to a
generator that automatically generates a matching CM system. Research
challenges include the creation of a repository specification language; a
language for creating detailed CM system specifications that identify
specific design choices, and resolve design tradeoffs; and the development
of generator technology that automatically creates source code to implement
a given repository specification. This auto-generation technology provides a
valuable tool for exploring advanced data models for CM systems.